Collaborative Research: AF : Unlocking High-Dimensional Expanders

"High-dimensional expanders" (HDXs) are special kinds of mathematical networks that allow a large number of points to be interconnected very efficiently. Recently, a few methods for creating them have been discovered, and these discoveries have led to breakthrough advances in areas such as error-correcting codes, data-routing algorithms, and quantum computing. Unfortunately, we still know very few methods for creating HDXs, and the methods we do know are not very well-understood. The "Unlocking High-Dimensional Expanders" project is devoted first to discovering new, simpler, and even more efficient HDXs. The second part of its mission is to find new applications of HDXs in computer science and technology -- particularly in quantum computing and optimization algorithms. The team of researchers will also promote scientific advancement by developing new educational material on HDXs for students and other researchers.

In more technical detail, the "Unlocking High-Dimensional Expanders" has three main research components: (1) Demystifying the construction of HDXs: The current known constructions use sophisticated and hard-to-understand tools from algebra and number theory; the investigators will seek new elementary methods for designing HDXs. (2) Developing HDXs: A wide range of additional properties of HDXs have proven useful in applications (e.g., symmetry, constructivity, different kinds of local / global interconnectedness); however, it remains unclear precisely which constructions have which properties. The investigators will develop known HDXs to discover what useful properties they have. (3) Deploying HDXs: There have been a number of recent outstanding results in computer science using HDXs, but the investigators believe the scope for their utility can be further widened. The team will pursue new uses in coding theory, optimization, and quantum computing, and will also explore the possibility of applications in further afield areas such as graph algorithms and data structures.